Tomography and Integral Geometry

ABSTRACT:

Professor Quinto will pursue problems in tomography
and the mathematical analysis of Radon transforms. He will develop
and refine tomographic singularity detection algorithms and apply them
to electron microscopy. Professor Quinto has successfully tested his
limited data tomography algorithm on electron microscope data, and he
will use these results as a basis for further refinement with the goal
of incorporating scattering and other effects. He will continue
research on the approximate inverse in three-dimensional SONAR.
Professor Quinto plans to prove uniqueness theorems for a model of
synthetic aperture RADAR, research which is based on his pure
mathematical work. Within pure mathematics, the principal
investigator plans to prove uniqueness and support theorems for
spherical Radon transforms. He and Professor Agranovsky will use
these results to characterize stationary sets of solutions of the wave
equation. Stationary sets, where the solution is zero for all time,
are very important and difficult to characterize. He plans to prove
uniqueness theorems for Radon transforms on spheres on real-analytic
manifolds and use these results to begin to characterize stationary
sets on rank-one symmetric spaces. He is proving Morera theorems for
the distinguished boundary of polydisks, and he plans to generalize
them to complex manifolds. He hopes to prove inverse continuity for
an important class of local limited data problems or clarify when they
do not hold.

This research encompasses both applied and pure
mathematics: tomography and integral geometry. The pure research will
be used to develop, understand, and justify the applied algorithms,
and the applied problems will motivate much of the pure research. A
computed tomography algorithm will be developed for electron
microscopy and tested jointly with colleagues at the Karolinska
Institute in Sweden. Our goal is to produce accurate pictures of
viruses and small molecules using an electron microscope. Jointly
with a colleague and an undergraduate student, he will develop an
algorithm for emission tomography, a type of tomography that locates
metabolic processes. He will develop pure mathematics that will show
how well the algorithms work and where their limitations might occur.
These pure mathematical underpinnings are required to ensure that his
(or any other) algorithms are as effective as they can be. SONAR data
can be modeled as averages over spheres (the spherical wave fronts of
the sound wave), and Professor Quinto will jointly develop new
algorithms for SONAR. This pure mathematics is intriguing in its own
right. Professor Quinto will prove theorems about spherical averages
which will be used to understand the wave equation (the equation that
describes how sound and light behave). The wave equation describes
the motion of a drum head, and he will specify which points on the
drum do not move at all. Finally, he will prove theorems he will
apply to complex and harmonic analysis, fields in pure mathematics.